1994 Gordon Research Conference on Pineal Cell Biology January 24-28, 1994, Casa Serina Resort, Los Angeles, CA

WPCD 2 B R V ` Z #| x Courier 10cpi ? x x x , Z x 6 X @ 8 ; X @ HP DeskJet 500 HPDES500.PRS x @ x X , , 0 FX @ 2 B h H # ABSTRACT 9318086 REITER The theme for this Gordon Conference will be "Pineal Cell Biology." The conference will include sessions on cellular biology of the pinealocyte, melatonin/suprachiasmatic nucleus interactions, cellular and molecular biology of the melatonin membrane receptor, melatonin receptor agonists and antagonists, cellular and molecular biology of melatonin, endocrine physiology of melatonin, melatonin and human reproduction, and melatonin in clinical medicine. The conference will be attended by 120 scientists chosen to represent a cross section of young and established scientists in pineal cell biology. ***